RUI: Heights, Dynamics, and Preperiodic Points

DMS-0600878
Robert L. Benedetto

This project concerns several problems from the relatively new field
of number theoretic dynamics. One central question, formalized in the
Uniform Boundedness Conjecture of Morton and Silverman, asks about the
number of preperiodic points of a given dynamical system that happen
to be rational numbers. While simple to pose, the question quickly
leads to deep and subtle arithmetic problems. Over the past decade or
so, there has been great progress on such questions, and a substantial
amount of technical machinery, some due to the investigator, has been
developed to help answer them. In particular, several recent advances
in dynamics over local fields, in the capacity theory of filled Julia
sets, and in the study of so-called local canonical heights and
dynamical Green's functions, have opened new avenues for considering
questions of arithmetic dynamics. The resulting theory has parallels
both to the analytic study of complex dynamics and to the arithmetic
study of rational points on elliptic curves and other algebraic
varieties; indeed, it has drawn interest from specialists in both
fields.

Ultimately, the goal of the project is to study a type of classical
Diophantine problem: the computation of the set of rational number
solutions to a naturally arising set of polynomial equations. Such
problems, together with the study of primes, have driven the study of
number theory from Diophantus and the ancient Greeks through Fermat
and into the present day. Besides the intrinsic beauty of such
problems, they have since found applications in coding theory and
cryptography. In addition, certain aspects arithmetic dynamics are
accessible to undergraduates; the project includes REU summer research
projects for undergraduates to aid in their mathematical training.
Intense computer computations, especially of canonical heights and
preperiodic points, are also planned, with any relevant data generated
to be published or posted on a website, for the benefit of the larger
research community.